Theory and Measurement of the Purcell Effect in Nanoscale Metallo-dielectric Laser Cavities

Objective:
The objective of this work is to the study of the Purcell effect in submicron metallo-dielectric submicron laser cavities.

Intellectual Merit:
The proposed research will investigate the spontaneous emission rate of a laser when optical modes are sustained in a very small cavity. The PI proposes to characterize the effect novel submicronlaser cavities by measuring the spontaneous emission rate under a range of conditions, varying temperature, size, material, cavity design and pumping schemes.

Broader Impact:
The advancement of nanolasers will enable compact sensing instruments and impact multiple fields such as environmental, chemical sciences and homeland security. In addition the project will help train and educate both graduates and grade students through research and outreach programs lead by the PI who has an exceptional record in the dissemination of research finds.